ROW: Renormalization-Group Theory of Elasticity of Disordered Solids

The purpose of this proposal for a Research Planning Grant of the ROW program is to determine the feasibility of a new theoretical approach to study the elastic properties of disordered solids. In this project preliminary studies will be performed to determine whether it is feasible to apply a new analytic method based on Wilson`s renormalization-group theory of phase transitions ıNobel Prize in Physics 1982! to some challenging unsolved problems of elasticity of disordered solids, which numerical analysis and computer simulations have been unable to solve. In these preliminary studies, the focus of attention will be on two microscopic models of elasticity which are currently studied by many researchers, the central-force model and the bond-bending model. There are two fundamental unanswered questions concerning the behavior to disordered elastic solids which will be addressed in this preliminary study: 1) What are the elastic properties of the central-force model (1) and the bond-bending model (2) in the neighborhood of the elasticity threshold pc? 2) Are the critical elastic properties of the central-force model universal, i.e., independent of the nature of the lattice? It is proposed to examine whether it is feasible to answer the above questions 1) and 2) by using a new analytic renormalization-group approach partly based on ideas and methods they developed in their studies of the pure percolation model and of the conductivity of disordered solids.